ROA: Molecular Systematics of Chickadees (Aves: Paridae)

North American species of chickadees are well-studied in terms of their biology, ecology, and behavior, but their evolutionary relationships are poorly understood. They are generally thought to be descended from a Eurasian ancestor or ancestors, but the number and timing of invasions are not known, and the order in which species have diverged remains unclear. Dr. Frank Gill of the Academy of Natural Sciences, Philadelphia, proposes to use restriction enzyme patterns in mitochondrial DNA to unravel these questions. These patterns will be compared with data sets of morphology and enzyme proteins, and then synthesized in an evolutionary study. The proposed research has implications beyond the interests of taxonomists specializing on chickadees. Biogeographers will be able to compare the timing and ecological conditions of invasions against those known for other groups. The framework of ancestor-descendant relationships will be available for comparative ornithological studies of behavior, ecology and anatomy. Molecular biologists will gain an important case study for comparing the rates at which different molecules evolve within a taxonomic group.